Regulation of Shoot Meristem Development

Higher plants initiate new organs (e.g., leaves) throughout their
life. Thus they face two problems. Plants must maintain a pool of
undifferentiated cells from which to draw upon for organ initiation, and
must balance the proliferation of these undifferentiated cells and their
incorporation into organ primordia. In other words, given a constant
number of undifferentiated cells, the cell division rate of the
undifferentiated cells must equal the rate at which these cells are
directed toward organ formation. These processes occur at a structure
termed a meristem. In the plant embryo, two meristems are established:
the root meristem, which will give rise to the root system, and the shoot
meristem, which will give rise to the above-ground portion of the plant.
At the growing tip of the shoot meristem, cells in the very center are
maintained in an undifferentiated state, while cells surrounding this
central region are directed toward organ formation. The goal of the
proposed research is to provide a better understanding of the genes and
processes directing organ formation at the shoot meristem. While the
proposed project is basic science, any applied projects to alter the
number, spatial patterning or identity of plant organs will require an
understanding of the shoot meristem.
The CLAVATA loci (CLV1, CLV2, CLV3) function in the same pathway
to promote organ formation at the shoot and flower meristem based on
loss-of-function phenotypes. The CLV1 and CLV2 genes have been cloned and
appear to code for receptors involved in signal transduction. During the
previous funding period the CLV1 gene was isolated and its expression
pattern, which is tightly restricted to the shoot and flower meristem, was
determined. CLV1 becomes ectopically expressed in mutants that develop
ectopic or enlarged meristems. Constitutive expression of CLV1 by the 35S
promoter was not possible, apparently due to the toxicity of CLV1 during
early stages of development. CLV1 could be expressed, however, under
control of the flower-specific AP1 promoter, and this rescues the clv1
mutant phenotype, but does not affect wild-type development. It was also
determined that the primary defect in clv1 and clv3 mutants is in organ
formation, not cell division. Analysis of clv2 mutants revealed that CLV2
regulates both meristem and organ development. CLV2 functions in the same
pathway as CLV1/CLV3 to regulate meristem development, but in a separate
pathway to regulate organ development. The requirement for CLV2 is very
sensitive to physiological conditions. Mutations in a number of novel
regulators of meristem development were isolated.
The goal in the current funding period is to generate inducible
ectopic activation of CLV1. This will allow questions of CLV1 function to
be addressed, and will allow the characterization of potential targets of
CLV1 signal transduction. The process of suppression of clv2 flower
phenotypes under short day photoperiod conditions will be investigated.
The investigations will determine whether this is a response to day length
or growth rates, and what genes are involved. CLV2 will be expressed
under various tissue-specific and inducible promoters to address questions
of CLV2 function. Finally, a mutation in a novel regulator of meristem
development, corona (cor), will be studied. The cor mutant was identified
as a strong enhancer of the clv1 organ formation defect. cor clv1-1
double mutants completely lose the ability to initiate new organ primordia
shortly after the transition to flowering. Preliminary genetic evidence
suggest that COR promotes organ formation in a separate pathway from the
CLV loci.